Young Scholars Program

In 1986, the Eastern Virginia Medical School and the Norfolk Public School System initiated a Magnet High School for the Health Professions, targeted toward minority students. The Young Scholars Program will add a logical and important dimension to the program by introducing the students to career opportunities in the sciences as well as emphasize the ethics of science and scientific method in small group problem solving conferences. The students will also participate in research projects in the life sciences under the direction of EVMS faculty. These research projects will be initiated during the summer phase and continue through the academic year. Students will be expected to continue their research laboratory experience during all three years of the Magnet High School Program.